Internet Accessible Mathematical Computation (IAMC) and Web-based Mathematics Education (WME)

ABSTRACT
0201770
Paul S. Wang
Kent State U

The Kent State University requests a three year research grant to support research on Internet
Accessible Mathematical Computation (IAMC) and Web-based Mathematics Education (WME).
The research will be conducted by Professor Paul S. Wang as Principal Investigator and two grad-uate
research assistants. The proposed effective date is August 1, 2002.
The proposed work extends progress already made, by the PI's group and others, in making
mathematical computations easily accessible and conveniently interoperable on the Internet. The
research involves protocol specification, design and implementation of prototypes, architecture of
a WME system, and design/implementation of a WME content authoring language. The results
have great potential for scientific research and mathematics education.